Inverse Problems in Geometry and Partial Differential Equations

This proposal brings together three researchers who will as a team use
their diverse backgrounds and expertise to tackle a number of
inter-connected inverse problems arising from differential geometry and
partial differential equations, each having a natural physical
interpretation. The specific problems include a dynamic version of the
classical boundary rigidity problem for Riemannian metrics and its
connection to the hyperbolic Dirichlet to Neumann map, an inverse problem
for anisotropic electromagnetic bodies, and the detection of obstacles or
cracks in an inhomogeneous conducting body from electrostatic measurements
performed on the boundary.

The field of inverse problems addresses the problem of determining
information about the interior of an object without destroying it, or
cutting it open. One may send in waves: light waves, x-rays, or
ultrasound, and analyze the transmitted waves which have been scattered by
an unknown interior (scattering theory); or one may make boundary
measurements of solutions to boundary value problems, the solutions of
which depend on the material properties of the interior (inverse boundary
value problems). Some of the problems discussed in this proposal also
have applications to: electrical impedance tomography (application of a
voltage potential to the boundary of a body and measurement of the induced
current at the boundary yields information about the interior), medical
imaging by ultrasound, non-destructive testing in industry (for cracks or
wear in airplane wings, for instance), and seismology and oil exploration
(the travel time of acoustic waves is used to reconstruct the earth's
substructure).